Development of Improved Methods for the Ion Probe Analysis of Geological Materials

This award will support the instrumental modification of a Cameca IMS 3F ion microprobe in the Department of Physics at Washington University in St. Louis. The ion microprobe at Washington University is one of only five similar instruments currently available to U.S. earth scientists for isotope and trace element analysis with spatial resolution on the order of ten micrometers. The modifications will include: (a) improvements in the collection of high energy secondary ions leading to greater sensitivity for trace element analysis, (b) development of a quantitative digital imaging system for the study of trace element distribution patterns, and (c) improvements in the transmission of secondary ions at high mass resolution leading to greater sensitivity for isotopic ratio measurements, in particular for uranium.thorium.lead dating.